Indefinite and Singular Optimal (boundary) Control Problems for P.D.E's

9705046 McMillan This project focuses on issues of boundary stabilization/optimal control of several linear and nonlinear dynamical systems on a bounded domain. The main goals of this study are the following: (1) To develop an abstract theory for the finite horizon indefinite cost problems (including singular problems) for parabolic and hyperbolic/Petrwoski partial differential equations (p.d.e.'s) with nonsmoothing observation operators. This result will be new even for standard (positive definite) finite horizon cost problems. In addition, we would like to investigate conditions for solvability of certain differential Riccati equations which are related to certain nonlinear optimal control problems. (2) Develop a minimax Riccati theory for indefinite cost problems, after first developing the standard Riccati theory (i.e., the case where there are no disturbances present in the system). (3) Verify various assumptions required by the minimax theory (which we have developed previously) for various shell models. The abstract problems that are being considered arise out of the mathematical modeling of problems in mechanics and structural design. In particular, the focus is on large vibrating structures such as satellite dishes, aircraft, antennae, etc. By necessity, the modeling of the movement of these structures results in systems of partial differential equations. Ways will be investigated in which to damp out (i.e., control) unwanted vibrations of these structures. In addition, the project seeks to address the control of vibrating structures in the presence of outside disturbances (e.g., external forces on aircraft wings). The project's goal is to contribute in filling a large gap in the literature on optimization problems for large flexible structures.